Materials Research Science And Engineering Center

The Materials Research Science and Engineering Center (MRSEC) at Johns Hopkins University supports an interdisciplinary research program on nanostructures with enhancd magneto-electronic properties. The research is carried out in one interdisciplinary research group, with appropriate seed projects. Within the IRG one thrust is on the magneto-transport properties of high quality bismuth thin films; another thrust is on ferromagnetic/antiferromagnetic multilayers, and another on nanostructured half-metallic chromium oxide films; two other thrusts highlight electrodeposited one-dimensional structures (nanowires) and patterned structures such as arrays of epitaxially grown interacting chromium oxide dots. The center is engaged in a variety of educational activities, including Research Experiences for undergraduates and Research Experiences for Teachers, an undergraduate fellow program and a high school teacher internship program. The Center supports well maintained shared experimental facilities, which are accessible to outside users and also supports interactive efforts within industry and other sectors.

Participants in the Center include 11 senior investigators, 4 postdoctoral associates, 8 graduate students, 10 undergraduates, and 2 technicians and other support personnel. Professor Chia-Ling Chien directs the MRSEC.